Logic Primitives for Multi-Wavelength Information Processing (SGER)

9410270 Wangemann This conference provides a forum for discussion of all aspects of nonlinear optics; including new phenomena, novel devices, and advanced materials. The meeting is cosponsored by the IEEE Lasers and Electro-Optics Society and the Optical Society of America. The topics to be considered will include (but not limited to) the following: 1) Fundamental Studies, 2) Nonlinear Optical Materials, 3) Wave Mixing and Phase Conjugation, 4) Surface Nonlinear Optics, 5) Fibers and Waveguides, 6) Nonlinear Cavity Electrodynamics, 7) Ultrafast Nonlinear Optics/Lasers, 8) Novel Nonlinear Optical Phenomena and Applications, and 9) NLO Information Storage and Processsing. ***